Collaborative Research: RII FEC: Transforming wastes Into Economic Assets for Sustainability, Resilience, and Prosperity by a Novel Negative Emission Technology

This project addresses the urgent problems caused by hazardous industrial waste and other environmental factors affecting local communities. It aims to transform biomass and hazardous industrial wastes into inexpensive, green construction materials using Negative Emission Technology (NET). This approach supports evidence-informed decision making and enhances resilience to hazardous environmental factors. By incorporating CO2 into building materials from waste, the project will contribute to reductions in atmospheric carbon levels and provide a sustainable waste management solution. It will also provide a long-term solution for handling biomass and industrial waste, which is presently disposed in landfills and causes health issues. The project also intends to create better building materials. Comprehensive workforce development programs include early career faculty development, undergraduate and graduate training, K–12 education, and teacher training, supporting STEM jobs and education. Benefits may include better public health, safer housing options, and economic opportunities and infrastructure enhancement in the participating communities.

This effort aims to develop a novel pathway to alleviate environmental and hazardous industrial waste effects. The project revolves around a Negative Emission Technology (NET) designed to convert alkaline industrial and biomass wastes into low-cost, low-carbon construction materials. This transformative solution will provide an economically viable means of enhancing the resilience of these communities and sequestering CO2 into concrete. Using alkaline industrial wastes as feedstock, the process produces calcium-rich leachate for CO2 capture, creating CaCO3 precipitate. The filtered solid residual, with higher pozzolanic reactivity, can partially replace ordinary Portland cement in concrete. This method generates new revenues through carbon capture and utilization in concrete. It is estimated that the NET method could sequester 2.9-8.5 billion tonnes of CO2 per year by 2100. Workforce development and outreach activities are extensive, covering K-12 education for teachers, undergraduate students, early career professors, industry partners, and communities. These initiatives promote STEM education in sustainable construction materials, circular economy practices, and the emerging interdisciplinary field of decarbonization of the built environment.